Instrumentation for Integrated Lecture/Lab in Introductory Psychology

A major problem with introductory science courses is that students are often turned off by the experience. This failure to capture the interest and stimulate learning is partly related to the one-way communication style of lectures and the isolation of laboratories from the content of the course. These factors contribute to a weak development of intellectual skills and understanding of the content. The department is addressing these problems by integrating the lecture and laboratory portions of the introductory psychology course. Students are actively exploring concepts, experimental procedures, and simulations using multimedia computers. Students are also conducting experiments using computers interfaced with physiological recording equipment. This approach is benefitting students majoring in psychology, psychobiology, education, and a broad range of non-science areas. The methods of this course should encourage students to consider scientific careers. *